ENVISION: An Environment for the Visualization of Computer Concepts

The objective of the ENVISION project is to provide an environment for computer science and engineering majors that will enhance student interaction with computers and increase student involvement in learning the key concepts of computer science. The plan is to establish a new computer laboratory and to develop an integrated set of tools to illustrate the material covered in major courses of our undergraduate curriculum. Computer graphics has become recognized as a convenient basis for user interfaces, and as powerful aid to understanding abstract and dynamic processes through visualization. They intend to develop a coordinated set of graphics routines and packages tailored to specific courses that will allow students to incorporate sophisticated graphical animation aids into their programming projects without having to worry about programming the low level details. The equipment will be used as a teaching vehicle where the instructor can demonstrate and illustrate important concepts. Moreover, the laboratory will provide students an opportunity for hands-on practice implementing or experimenting with the fundamental ideas presented in class.